Multiscale PDE Asymptotics for Tropical Atmospheric Waves

Biello
DMS-1009959

Our understanding of tropical meteorology and its ability to
influence the middle latitudes is the major stumbling block to
increasing medium term (two week) weather prediction over the
United States (midlatitudes). The investigator studies
multiscale asymptotics for the partial differential equations
that govern tropical atmosphere atmospheric waves and their
connection to midlatitude waves, extending his previous work in
the field. The three aspects of this project are: (1) The effect
of the climatological flow (the Hadley circulation) on the
Intraseasonal Multiscale Moist Dynamics models of the
Madden-Julian Oscillation (MJO); (2) The effect of mean shear on
the non-linear interaction of equatorial Rossby or Kelvin waves
with midlatitude Rossby waves; (3) The coupling of tropical waves
to a stochastic model of moist convection and the derivation of a
closed, single scale, stochastic model of the Madden-Julian
Oscillation. This last project could yield a transformative
development because it would be the first MJO model whose
structure is systematically derived from multiscale asymptotics
(Biello and Majda) and whose convective forcing arises from a
tested model of cloud dynamics (Khouider, Biello and Majda).

The effect of small and fast phenomena on large and slower
phenomena is a ubiquitous question in modern science and
policy-making. In economics, for example, the question may be
phrased, "How do individual actions organize to yield steady
economic conditions or unstable economic conditions?" In
atmospheric science, this question is manifested as "How do small
scale events such as storms and storm systems organize themselves
to affect the mean climate in which they sit?" While large
modern computational simulations have yielded many insights into
this multi-scale organization, they are limited in that the
smallest structures they can resolve are still large; for
example, most climate computations cannot see structures smaller
than 60 miles across. So, the equations that these computers
solve must resort to a model (whether empirically determined, or
ad hoc) in order to describe these unresolved structures. A more
systematic approach is to use techniques of modern applied
mathematics in order to isolate the phenomena at each scale that
are the essential elements of this multi-scale coupling. The
investigator's work focuses on using these modern applied math
techniques to understand the multi-scale coupling of the tropical
atmosphere. Specifically, he seeks to understand how storm
systems, which live for several days, organize to affect
planetary scale wind patterns, which modulate over the course of
several months. Furthermore, these wind patterns generate
weather waves that propagate away from the tropics over the
continental U.S. The investigator uses similar mathematical
techniques to understand this wave generation. Improving our
understanding of these phenomena will increase the accuracy of US
weather forecasts.